Travel to Attend: Ninth Power Systems Computation Conference; Libson, Portugal, August 8 - Sept 4, 1987

Participation by U.S. Researchers in this international program is important to future U.S. research and U.S./European Technical relationships. The triennial Power Systems Computation Conference has been held since 1963 with the objective of providing a forum for exchange of ideas and experiences world-wide in the field of computer- aided analysis and control of power systems. It is equally attended by both universities and industrial researchers.